Linear partial differential equations on singular spaces

In this project, the PI will investigate several different aspects of the
theory of linear partial differential equations associated to manifolds
with singular Riemannian metrics. These include the propagation and
diffraction of singularities for the wave equation on manifolds with conic
and edge singularities, and the structure of the fundamental solution for
the time-dependent Schrodinger equation on manifolds with scattering
metrics. Tools such as the Fourier-Bros-Iagolnitzer transform will be
studied and refined as needed.

Linear partial differential equations (PDEs) that describe wave propagation
(such as the classical wave equation and the Schrodinger equation) are of
fundamental importance in physics and geometry. The propagation of waves
on curved spaces often involves the geometry of the underlying space in a
subtle manner. When the space is `singular,' either in the sense of being
infinite in extent or of having degenerate properties in a finite region,
the relationship between geometry and the properties of solutions to PDEs
is especially fascinating and poorly understood.